Modeling of the Core & Mantle Based on Observations of Nutations & Tides

This research will be on the nutational and deformational responses of the Earth to lunisolar perturbations, and on geophysical phenomena which affect these reposes; it will consist of theoretical investigations, as well as analyses related to space-geodetic data. The primary goals are, firstly, to obtain more accurate knowledge of the Earth's structure and properties, especially those relating to the fluid outer and solid inner cores, and secondly, to apply this knowledge to derive accurate formulae, including the effects of mantle anelasticity, ocean tides, etc., for nutation amplitudes and tidal parameters. The theoretical studies will take advantage of the developments in the theory of nutations including the influence of inner core dynamics, and in the formulation of the tidal deformation problem in computationally efficient form.